Symposium - Adaptations for Salt and Water Balance in Vertebrates, Nagoya Japan, May 31 - June 5, 2011

These funds support participation of graduate students, post-doctoral fellows, and young
investigators at the International Conference on Comparative Physiology and Biochemistry
(ICCPB 2011), to be held in Nagoya, Japan. Participants will build world-wide connections and
gain cross-cultural exposure to institutions interested in global environmental effects on animals.
Advances in understanding how animals adapt to environmental changes will support goals of
safeguarding biodiversity at all levels. Funds will support individuals who have demonstrated
exceptional aptitude and potential for advancing the field of epithelial fluid and solute dynamics
and its regulation. A select group of individuals will present talks in a symposium focusing on
concepts essential to understanding the role of epithelia in water and solute balance this
balance has an overarching role in maintaining all life's basic functions. Epithelia are found in all
organs, and exist as sheets of cells, assembled together by precisely arranged junctional proteins
that lie between cells. Notably, the dynamics of water and solute flows through cells of the
epithelial sheet are highly integrated with flows through junctions of the epithelial sheet, in a
regulated, but poorly understood fashion. The symposium speakers will stress the importance of
how and why cell-to-cell contact and plasticity of these systems are fundamental to appropriate
tissue water and solute dynamics for all vertebrates. Other individuals supported by this grant
will have the opportunity to present their research findings, face-to-face in poster sessions, with
scientists from nearly every continent who work in widely diverse biological fields. A major goal
will be to identify and select women and individuals of underrepresented ethnic minority
background as recipients of these travel funds. Funding for student and trainee initiatives at
ICCPB 2011 will play a key role in attracting and retaining the brightest and best-trained
comparative physiologists.